WWMeB Meeting, June 26-27th, 2001

The WWMeB meeting will bring together biologists and software developers who are working to develop a World Wide Meiosis Database. Meiosis is the process by which egg and sperm cells are generated, the gametes. Two previous meetings have been held. At this meeting, the organizerrs will incorporate two new gender-specific databases that have been developed for describing events in the development of eggs and sperm, respectively. The meeting will produce a plan for coordinating international efforts in an area of biology where the general processes have been highly conserved.